Engineering Foundation Conference on "Nanophase Materials", Davos, Switzerland

9403182 Siegel This grant provides support for a conference on nanophase materials held in Davos, Switzerland. There is considerable interest in the novel properties of nanophase materials. These materials have constituent phase or grain structure modulated on a length scale less than 100 nanometers. They are artificially synthesized by a wide variety of means. This conference focuses on what is presently poorly understood about the synthesis, structure, properties and potential technological applications of these three- dimensionally modulated materials. %%% Nanophase materials have been shown to have unique mechanical and physical properties. The science is relatively new, and many possibilities exist for their technological applications in industry. ***